Research in Intermediate Energy Physics

***
9804708
Pocanic

This project addresses certain fundamental aspects, especially symmetries,
of the electroweak and strong interactions that are reflected in meson and
nucleon properties, structure and interactions at low/intermediate energies.
This research is motivated by the fact that the present comprehensive
theory--the Standard Model (SM)--is known to be incomplete; furthermore, the
SM becomes unworkable for strong interactions at low energies. The rare
beta decay of the pi-meson (pion), occurring once in about 100 million
ordinary pion decays, provides a theoretically clean window to certain
allowed extensions of the SM. The PIBETA experiment, mounted at the Paul
Scherrer Institute, Switzerland, by an international collaboration of seven
institutions led by the UVa group, aims to improve the present 4% accuracy
of the pion beta decay rate by better than a factor of ten in a staged
approach, in order to match the theoretical uncertainty and provide new
constraints on physics beyond the SM. Measurements will begin in the summer
of 1998 and will continue for several years. PIBETA is the main effort of
the present research proposal. Additional commitments of effort include
work on studies of nucleon and meson structure at Stanford (SLAC experiment
E155) and Jefferson Lab (CLAS and RADPHI collaborations). Lastly, this
group's work on chiral symmetry breaking in the pion-pion and pion-nucleon
systems is being completed and published. (Chiral symmetry is the organizing
principle in low-energy strong interactions.) During the past four years
this program has resulted in two doctoral and one master's degree at UVa.
Two more UVa Ph.D. degrees are expected in the next three years, plus three
more at collaborating universities stemming from the PIBETA project alone.
Each year typically one to two undergraduate students are engaged in
research on this project, thus gaining practical laboratory experience.
***